Analysis of Ultrastructural Characters in the Systematics ofOomycetes

Oomycetes are fungal-like organisms that are important in aquatic and moist habitats where they decay organic matter and parasitize algae, fungi, plants, insects, and crustacea. Despite their importance, many characters currently used to show phylogenetic relationship and to classify these organisms are not stable under different environmental conditions. This project will use ultrastructural features to develop a new base of stable characters and then to use that data base to develop a new model of phylogeny, both of and within the taxon, and to revise their classification. The character base will focus on motile, asexual spores. Once completed the PI will turn to an analysis of the genus Aphanomyces. The phylogenetic analysis of the larger group and the genus will use parsimony analysis based on polarization of transformation series using out-groups.